Workshop: Resource Database of Identified Neurons for Neuroscience Research: April 28-30, 1994: Washington, D.C

9411967 Jacobs Science can make great progress when the knowledge acquired within one discipline is organized and made accessible for detailed analysis. Just as molecular genetics has made great strides since the introduction of electronic databases cataloguing the sequences of genes from animals used in research, neuroscience would be advanced if appropriate databases were made available to researchers. In this proposal, Dr. Gwen Jacobs outlined a series of workshops in which neurobiologists and information scientists will gather to determine how to institute electronic databases of individually identifiable nerve cells. Databases for several different research organisms are now possible, and might include detailed structural, physiological, neurochemical, and genetic information about each cell. The databases would advance studies of brain cell function, or the behavior of neural networks. This electronically stored information could be made available over internet to aid both researchers and educators. ***